CEDAR: Continued Investigations of the Properties and Sources of Short Period Gravity Waves Using Nightglow Image Data

This project will continue analysis of image data and perform in- depth collaborative studies for investigating the intrinsic properties and sources of short period gravity waves. This work takes advantage of the high linearity of CCD data for quantitative measurements of the wave field using 2-dimensional spectral analysis techniques. In addition, the PI will participate in two campaigns to further knowledge of the abundance, geographic distribution and properties of short period gravity waves. These campaigns will gain novel data important for assessing the "global" impact of gravity waves on the upper atmosphere meteorology.***